CT-ISG: Summer School on Reliable Computing

ABSTRACT
0524639
Zena M. Ariola
U of Oregon Eugene

The proposal aims at the development of a summer school on Tools for Improving Software Reliability. The aim of the school is to prepare graduate students, post docs, academic and industrial researchers to conduct research on this topic. Three di.erent types of material will be presented: the foundational theory, the advanced techniques for software reliability, and practical applications.